REU: The University of Alabama Undergraduate Computer Science Research Program: Research Experiences for Undergraduates

9619680 Cordes, David University of Alabama REU: The University of Alabama Undergraduate Computer Science Research Program : Research Experiences for Undergraduates This Research Experiences for Undergraduates (REU) Site project supports 9 students per year in programs carried out during the summers, for three years. Students are recruited from smaller, primarily undergraduate schools throughout the South with emphasis on recruitment of women and minority students. Research projects within the department from which the students have an opportunity to select include software testing, database systems, parallel algorithms, human-computer interfaces, distributed systems, artificial intelligence, programming languages, and performance analysis. Students are required to create a formal, written report documenting their summer activities and, at the completion of the program, to present a short talk to the students and faculty of their home institution.